Storm-Driven Circulation and 'Event Bed' Genesis on the Northern Gulf of Mexico Continental Shelf

A modelling study to construct a dynamic stratigraphic model of event bed deposition on the Louisiana-Texas continental shelf. Sensitivity tests will help define a set of physically realizable solutions. The main objective is to test the hypothesis that coarse-grained "event" beds are the result ofshort-lived storms. The modelling will attempt to answer questions about the strength of geostrophic flow necessary to form these beds, the source for the sand, regional extent and interval characteristics and the vertical sequence of the event beds in the framework of the frequency of storms and availability of accommodation space on the shelf.